3-D geometry of the Moine thrust and its implications for 3-D strain distribution and thrust sheet kinematics

Most thrust fault traces are arcuate in nature and are comprised of a series of
salients and recesses suggesting that thrust faults are, in general, non-planar. Such three-
dimensional complexities in the thrust surface geometry may be an important factor
controlling the thrust fault kinematics. Consider the analogy of glacial ice flowing over
an irregular substrate. The major resistance to movement is not due to the friction
between the two materials (which is greatly reduced by pressure-melt water that coats the
surface) but due to the distortion of the ice as it flows past surface irregularities. Thrust
sheets may behave in a similar manner. Fault rocks are considerably weaker than the
host rock and, therefore, the continued deformation of such rocks may not be the factor in
large-scale thrust sheet emplacement. The PI suggests that three-dimension irregularities in
thrust surface geometry play a major role in thrust sheet kinematics. If this is the case,
one should expect that the strain patterns observed along strike of a given thrust fault will
reflect the thrust fault geometry. Preliminary studies have shown that both c-axes
patterns and relict grain shapes vary along the strike of the fault most likely due to the
fault geometry effects. Initial data suggest that deformation is nearly plane strain
within a prominent salient; but along the margins of the salient there is a stronger
component of flattening strains. However, further examination of the strains in this
region are needed to truly resolve this pattern. Three-dimensional finite strain geometries
have been determined in this region by measuring relict quartz grain shapes and
examining quartz c-axes fabrics. Moreover, it may also be useful to measure final stage
incremental strains by determining three-dimensional recrystallized quartz grain shapes
and three-dimensional quartz overgrowth geometries. It is only through examining
incremental strain histories that the PI can fully understand the kinematics of thrust faults.
Nevertheless, current mechanical models do not take into account the existence of
non-plane strains and therefore only predict realistic fold-thrust belt behavior to a first-
order. In order to make more realistic models for the evolution of fold-and-thrust belts
we must start to incorporate the non-plane strain elements of geometrically complex
thrust faults.